Travel Grants for Attending the 29th IEEE Symposium on Reliable Distributed Systems (SRDS)

This proposal requests funding to assist US-based graduate students and junior faculty to travel and attend the 29th IEEE Symposium on Reliable Distributed Systems (SRDS-2010), which is to be held in New Delhi, India on October 31-November 3, 2010. The support requested in this proposal will enable the participation of students and junior faculty, especially those from under-represented groups, who would otherwise be unable to attend SRDS-2010.